A Workshop for Symbolic and Algebraic Computation: Directions for Future Research

The Mathematical Sciences Institute will host a workshop on "Symbolic and Algebraic Computation" in the Washington D.C. area 28-30 April 1988. There has been active research in Symbolic and Algebraic Computation (SAC) since at least the early 1960's by a small group of researchers world-wide. This research has resulted in substantially improved algorithms for some fundamentally important problems such as polynomial gcd calculation, in the development of early generation of software and in a few significant applications. The research to date has revealed a substantial potential for this kind of computation, but the potential remains largely unrealized and the research area is still in an immature state. It is the purpose of this workshop to bring together a group of eminent scientists and engineers from a wide variety of backgrounds to examine and see what action, if any, is desirable to accelerate research in this area. The conclusions reached by the participants will be documented in a report. The report will include an assessment of the current status of research in this area, outline and justify near-term and long-term goals, and make recommendations to federal agencies, especially the National Science Foundation, for action to meet these goals.